Stabilization of the Large Power System

This action is concerned with the transfer of a project on stabilization of large power systems from Washington University to Texas A&M University. The objective of the research is to derive on-line digital control techniques for thestabilization of large power systems subject to severe disruptions (such as in emergencies). A new method has been proposed for managing the active and reactive power in such a way as to keep all voltages within normal limits and all currents within their thermal limits thus avoiding further stabilityproblems under severe disruption of system operation.